MRI: Track 1 Development of an Integrated Instrument for 6G Sub-THz Joint Communication and Sensing

This project aims to develop the sub-terahertz Integrated Communication and Sensing (TiCS) instrument, a programmable platform for experimenting with sub-terahertz (sub-THz) communication and sensing. Through advanced radio frequency circuits and signal processing module design, TiCS will provide experimentation capabilities to accelerate research and innovation in cutting-edge 6G wireless systems. TiCS will be deployed at the Qualcomm Institute Circuits Lab (QICL), a publicly accessible facility that has served researchers in UCSD, local startups, and other institutions for over a decade.

The TiCS instrument aims to significantly advance the design and development of sub-THz research platforms. It plans to provide five new capabilities absent in current commercial or academic platforms: (i) A low-cost ultra-broadband 0.1-0.75 THz software-defined radio with up to 35 GHz sampling bandwidth, realized through multi-channel aggregation on state-of-the-art RFSoC FPGAs. (ii) A sub-THz MIMO prototype with real-time channel sounding for investigating near-field MIMO communication and sensing. (iii) Software-defined radar with customizable waveforms and processing algorithms, achieving sub-mm range resolution and ultra-fine angular resolution. (iv) A software-defined network analyzer enabling MHz-level precision in material characterization, orders of magnitude finer than THz time-domain spectroscopy. (v) A metadevice reference design library to facilitate rapid prototyping of sub-THz metadevices, including 2D metasurfaces and 3D metamaterials. These metadevices are essential for overcoming the propagation artifacts of sub-THz signals, and can facilitate the development of novel communication and sensing functions when integrated with TiCS' programmable hardware. These advanced capabilities will provide researchers transformative means to conduct cutting-edge investigations into 6G communications, networking, ubiquitous sensing, spectroscopy, biomedical diagnosis, and smart manufacturing. The software-defined joint communication and sensing (JCAS) functions implemented on FPGAs substantially reduce the instrument cost compared to recent sub-THz platforms that rely on wideband signal generators, oscilloscopes, and time-domain spectroscopy equipment, making 6G JCAS research more affordable for the broader wireless research community.

TiCS will achieve broader impacts through the following key initiatives: (1) Building research capacity by addressing the gap in accessible sub-THz instrumentation and providing an open platform for 6G research; (2) Promoting open innovation by releasing TiCS hardware and software in the public domain, along with supporting resources; (2) Enhancing STEM education through new curriculum modules and K-12 outreach programs; and by engaging students in TiCS testing and experimentation.